Mechanics of Systems with Bi-Stable Elements

Technological advances in new electronic and bio-medical systems
increasingly rely on the development of new materials with
bi-stable or multi-stable response at the microlevel that can actively
respond to environmental changes and provide functions of sensing,
processing, actuation and feedback. Actual design guidelines can be
obtained from the analysis of lattice models because the
microstructures, which largely control macroscopic behavior of the
materials with bi-stable elements, often depend on the parameters of the
crystalline structure. The results of this project will contribute to a
deeper understanding of the relation between discrete systems with
bi-stable elements and continuum systems with nonconvex energies, an issue
which is crucial for the development of efficient numerical methods and
control codes for active devices.

The micromachinery that is being designed in laboratories today and will become
ubiquitous tomorrow operates on sub-micron scales. Traditional approaches
for the design of such devices often yield unsatisfactory results.
The complexity of the behavior at this scale can only be achieved if a
multi-stable "mechanism" is integrated into the material at the molecular level.
The simplest example is a bi-stable mechanism, where a device consists of many tiny
elements that can be in two stable states, say bent or straight. The transition from
one state to the other is provided by a phase transition which can be controlled by
mechanical stress, temperature, electric or magnetic fields. The bi-stability leads
to characteristic microstructures represented by a large number of defects, that is
boundaries between the two possible states within the device. The large strains
observed in such active materials are produced by the coordinated migration of
these mobile defects in the process of domain "switching". The main goal
of this research is to study these nonlinear processes and to obtain a more complete
understanding and control of the properties of active materials from the
perspective of a micromodel.